Model Program for the Preparation of Middle School Science Teachers

In this project Hampton University will develop a five-year model program for the preparation of middle school science teachers. This model program will involve the development of one new mathematics course, three new science courses, and the modification of six existing science courses in the first three years. Years four and five will focus on course evaluation and revision, selection of mentor teachers, and development of field placement and student teacher experiences. The science content requirements being proposed satisfy National Science Teachers Association recommendations for middle school teachers. In an attempt to recruit minority students into teaching, Hampton University, which has a predominately black student body, will work closely with high school science teachers and will mount a powerful recruitment campaign within its student body. It is projected that within five years more than 108 students will be enrolled in the middle school science teaching program. This project represents a cooperative effort among the academic departments of science education, biology, chemistry, physics, and computer science. Faculty from each department will be involved in course development and evaluation. Public schools personnel will also be involved as members of an advisory committee, as mentor teachers, and in the planning and implementation of in-school preservice teaching experiences.